D-Modules Associated with Representation of Reductive Lie Algebras and Superalgebras

Abstract

Award: DMS-9972065
Principal Investigator: Vera Serganova

The project is dedicated to the study of relation between
representation theory and the theory of D-modules. The first
part concerns a generalization of Bernstein-Beilinson result for
Harish-Chandra modules. It was shown by Fernando that if M is an
irreducible module over finite-dimensional Lie algebra G then the
set of elements which act locally finitely on M is a Lie
subalgebra. If the corresponding Lie subgroup K has finitely
many orbits on the flag manifold then Bernstein and Beilinson
showed that such modules can be obtained as D-modules extended
from K-orbits on the flag manifold. The principal investigator
hopes to relate a subgroup K and algebraic properties of M with
geometric properties of the corresponding D-modules. As a first
result she has a geometric construction of (G,K)-module for every
K containing the maximal torus. The second problem to be
attacked is a generalization of Bernstein- Beilinson theorem for
Lie superalgebras. A straightforward generalization works only
for non-degenerate central character, while the most interesting
representation theory happens in degenerate case. The principal
investigator hopes to use a superanalogue of Bernstein-Beilinson
theorem to prove her earlier conjecture for Kazhdan-Lusztig
polynomials in the super case.

The symmetries of geometric objects and physical theories form
Lie groups, whose local and infinitesimal structure are described
by Lie algebras: vector spaces with a product operation
satisfying simple rules. Representation theory concerns basic
decompositions and manifestations of these Lie algebras and
groups in geometry, analysis, and algebra. The D-modules of the
project title are algebraic structures which capture essential
aspects of calculus and analysis. The principal investigator
believes that geometric aspects of representation theory founded
in works of Brylinski, Beilinson, Bernstein, Kashiwara, Kazhdan,
Lusztig and others can be applied to pure algebraic
representation theory, especially in the theory of weight modules
developed by Fernando, Futorny and in recent work of Mathieu.
One hopes that technical algebraic details of their proofs can
become clear when done in geometric language of D-modules.